Postdoctoral Resarch Fellowship in Biological Informatics for FY 2000

This action funds an NSF Postdoctoral Research Fellowship in Biological Informatics for 2000.

The research and training plan is in the area of population genetics and is entitled "Using Current DNA Polymorphism Data to Make Inferences about Past Human Demography." Statistical analyses and extensive computer simulations are being used to determine what models of human demography are compatible with existing DNA polymorphism data. These methods can answer important and interesting questions about human populations such as when did they start to expand in size and which groups are closely related to each other. The methods are generally applicable to population studies.